Collaborative Research: US GO-SHIP 2021-2026 Repeat Hydrography, Carbon and Tracers

The Global Ocean Ship-based Hydrographic Investigations Program (GO-SHIP) is a systematic re-occupation of key global oceanographic stations that began in 2003. The sections span all ocean basins and reach full ocean depth, with physical and chemical measurements of the highest ‘reference standard’ accuracy. This grant will extend this unique data set over the next six years. The new hydrographic data sets collected by U.S. GO-SHIP will contribute to overlapping scientific and technical objectives related to: 1) heat/freshwater storage and flux; 2) carbon system and biogeochemical studies; 3) water mass ventilation; 4) model calibration, validation, and state estimation; and 5) autonomous sensor calibration, including Core, Deep, and Biogeochemical Argo profiling floats. The program benefits society as it is the only globally available source of information about changes in the deep ocean. The data will continue to be a resource for Earth system model validation. Outreach for U.S. GO-SHIP data collection (expedition-based) and synthesis will extend data usefulness and public awareness. The program will continue to promote and expand scientific and leadership training for graduate students, postdoctoral scientists, and early career scientists. Funds are budgeted for graduate students, postdocs, and young scientists to participate in each cruise, and for an annual postdoctoral program to entrain early career scientists in use of these invaluable observations.

Fourteen research cruises during this award period are planned, with the continuing objective of systematically quantifying global-scale changes in storage and transport of heat, freshwater, carbon, oxygen, nutrients, and related parameters. Included measurements are: 1) hydrographic/physical (conductivity-temperature-depth sensors, salinity, oxygen, nutrients, water movement from both lowered and underway acoustic doppler current profilers, underway temperature and salinity, meteorology, bathymetry); 2) carbon system (dissolved inorganic carbon, dissolved carbon dioxide (pCO2), total alkalinity, pH, dissolved organic carbon, total dissolved nitrogen, underway pCO2), and 3) transient tracers (CFCs and sulfur hexafluoride). U.S. GO-SHIP will continue to cooperate with separately funded investigators: examples include measurement of carbon-14, iron and other trace metals, tritium/helium-3, microstructure turbulence measurements, as well as floats and drifters. This grant includes funds to collect data and perform quality control to achieve reference quality, with limited synthesis through support of postdoctoral researchers. Data will be released using the successful approach in place since 2003, with a stringent data policy of rapid and open dissemination, including transfer to recognized data centers.